RUI: Acquisition of a Preparative Ultracentriguge: A Multi-User Request

A preparative ultracentrifuge and two rotors will be placed in the Biology Department of George Mason University. The high speed capability of the ultracentrifuge and the large volume capacity of the rotors are needed 1) for the continuation of research of at least five professors in the Biology Department of this University, and 2) in the laboratory instruction undergraduate students in this Department. By facilitating methodologies of cell fractionation, the ultracentrifuge will impact the following research projects: the study of iron transport into the bacterium Pseudomonas aeruginosa, the localization of the electron transport components of an iron- reducing bacterium, the isolation of membranes involved in extracellular polysaccharide synthesis and modification in red algae, the role of thymic growth factors on human breast cancer cells growing in culture, and the role of stress proteins in the acquisition of stress tolerance. As well, the instrument will be used to train students in the research laboratory of each professor. It will also be used to teach students in the classroom laboratory the basic techniques of cell fractionation and virus isolation. Students enrolled in Biological Ultrastructure, Experiments in Microbiology, Techniques in Virology, and Advanced Techniques in Molecular Biology will use the ultracentrifuge in laboratory experiments.//